Computational and Applied Aspects of Multiperiod Stochastic Programming

Research is concerned with algorithmic and practical aspects of large- scale multi-period stochastic programs, motivated by problems in production, manufacturing, scheduling, finance and energy policies. Approximation and bounds on the nonlinear functions will be thoroughly investigated. The aim is to provide insights regarding solution and analysis of multi-period stochastic programming problems.